Investigations of Solar Activity with Instruments of the Owens Valley Solar Array

The research to be carried out centers on solar radio astronomy. Specifically, decimetric
bursts will be studied using the combined spectral, temporal, and spatial capabilities of
the Owens Valley Solar Array (OVSA) and the Frequency Agile Solar Radiotelescope
(FASR) Subsystem Testbed. The magnetic and plasma properties of the solar corona
above active regions will also be explored, including elucidating the 3D structure of the
corona above active regions. In-depth studies of magnetic reconnection in both tworibbon
flares and bursts with pulsations will be undertaken, and their relation to the
acceleration of electrons that produce the radio and hard X-ray bursts will be evaluated.
The OVSA instrument is a university-based solar-dedicated radio imaging array and the
only solar-dedicated radio instrument in the US. During the award period, the
testing/prototyping of technology for the Frequency Agile Solar Radiotelescope will
be continued. In addition, the data collected through
OVSA will made available to scientists world-wide as well as to undergraduates and
graduate students at the New jersey Institute of Technology for use in research projects.